A Polar Signal Dominating the Tropical Oceans, 1.2-1.8 Ma?

Abstract

Under this award the PIs will probe the nature of high latitude influences on tropical oceanography during the late Pleistocene 41 kyr regime. The PI will increase knowledge of how high latitude processes interact with the tropical oceans to produce large-scale changes. The PIs will determine: Amplitudes of SST change at orbital frequencies in the 1.2-1.8 Ma at various tropical lcations. Correlation of SST changes to thermocline proxies at each site. Correlation of multiple proxies, where obtained (e.g. Mg/Ca, C37total vs. F. profunda). Phase relations of SST change to benthic d18O and presence/absence of a circa 100 kyr component to SST